Theory of Atomic Collisions

9600017 Macek A number of projects involving the correlated motion of three particles of arbitrary mass and charge will be undertaken. The mode of attack is based on a recently developed integral expression which has been evaluated using complex variable theory. Emphasis is on the confrontation of theory and experiment to test the physical pictures of correlated motion which have arisen in diverse fields such as ion-atom interactions, electron impact and photon processes. ***